Spin-Polarized Hydrogen

Success is described on the confinement of spin-polarized hydrogen by a magnetic trap that confines the gas by magnetic forces that completely isolate it from all surfaces. Recent results are reported in which the gas been evaporatively cooled to a temperature of 2mK. These advances open the way to the study of hydrogen in a new quantum regime. Atomic hydrogen at submillikelvin temperatures can provide an ideal system for studying the weakly interacting Bose gas and quantum transport phenomena. A program of research is proposed for applying these new techniques to study the statistical mechanics of atomic hydrogen and deuterium at submillikelvin temperatures. The new techniques are also expected to have important applications in atomic physics and ultra high resolution spectroscopy. A primary experimental goal is to develop a laser-based technique for studying the momentum and spatial distributions of hydrogen in the trap.